Program Optimization with Data-Specific Compilation

Irregular data structures, as exemplified with sparse matrices, are essential in modern computing: they are central in numerous scientific applications, ranging from physics simulation to graph processing. A key challenge is to deliver high-performance implementations for computations on irregular structures, which typically use additional arrays to store explicitly the coordinates of non-zero elements in the structure. The project's novelties address the next opportunity for code customization by developing a new kind of data-specific compilation approach that is customized to the unique sparsity pattern in the input data structures. This project designs and fully automates data-specific compilation techniques that can discover and exploit hidden regularity in sparse structures, reducing the development cost to produce high-performance implementations. The project's impacts also include novel theoretical results and practical algorithms to model irregular data structures as a union of (piecewise-)regular structures, exploiting this representation for increased application performance. In machine learning, sparsely connected neural networks can directly benefit from this data-specific compilation approach, enabling the development of improved inference implementations for deep networks.

Specifically, the project develops new theory and algorithms to represent sparse data structures using unions of hierarchical polyhedra: the list of non-zero coordinates can be compressed into specialized and more compact affine functions that, when evaluated, would generate exactly the input list of coordinates. The investigators target a range of different hardware accelerators based on SIMD engine principles, and facilitate performance portability by using cost-driven yet machine-independent algorithms to search for optimized implementations. Tools produced are made publicly available as open-source BSD-licensed software.